Workshop on Reliability in Computational Mechanics

This project is for a workshop to be held at the University of Texas on the reliability of computational results in mechanics. The evaluation of the accuracy of numerical schemes is an ongoing process. This workshop will sensitize researchers to current methodologies for evaluating reliability as it applies to mechanics problems.